Society of Engineering Science Conference, October 29 thru November 1, 1995, in New Orleans, LA

9527025 Hui This award is to partially support the attendance of graduate students at the Society of Engineering Science 32nd Annual Technical Meeting being held in New Orleans, LA October 29-November 1, 1995. This meeting is a major society meeting and covers a wide range of technical areas. Therefore it has both an appeal to a broad range of students and senior faculty. ***